REU Site in Physics at the University of Connecticut

9424125 Stwalley A "Research Experiences for Undergraduates Site" will be initiated in the Physics Department of the University of Connecticut. Students will be recruited nationally, and those participating will join a broad range of on-going research programs for the summer. ***